SBIR Phase II: Coupled High Performance Liquid Chromatography with Fourier Transform Infrared Spectroscopy Instrumentation for the Characterization of Polymers

9501303 Dwyer This Small Business Innovation Research Phase II project will significantly improve hyphenated Liquid Chromatography/Infrared (LC/IR) Spectroscopy technology for use in polymer characterization. This methodology provides a marked advance over conventional chromatography/IR spectroscopic analytic methods. Phase I research successfully developed a prototype for a wide variety of polymer applications. The Phase II research plan is divided into four parts: (1) define limits of the system, including quantitative analysis, and examination of artifacts; (2) expand the list of applications: test additional copolymer systems, as well as blends and alloys; (3) modify system design to provide automated multi-sample analysis; and (4) develop 3D/IR software to link with commercial chromatography software packages, and to provide additional modes of data analysis. The combined capacity of the hardware/software represents a quantum advance in capability for polymer characterization. The results of this study will expand the commercial market to polymer scientists working on a wide range of applications from research to manufacturing and quality control.